Fairness, Institutions and Anonymity in Bargaining Games

The purpose of this research is to address the issue of fairness in the context of bargaining. Over a decade of research by experimental economists using sequential-move bargaining games has documented the observed tendencies toward equal split of the available surplus. This is contrary to the predictions of noncooperative equilibrium theory based on self-interested bargainers. Is this due to a preference for fair outcomes, or is it due to expectations arising in the context of social exchange? Double blind experiments have already been run where no one, including the experimenter, can identify who made what decision. The project will analyze the effect of this anonymity in a variety of bargaining games, and explore procedures for assuring that a subject has earned the right to an advantageous position in a bargaining situation. These issues are fundamental to understanding the nature, circumstances and conditions under which self-interested outcomes are observed in our society, as well as to understanding the effect of social context on outcomes, and the extent to which they arise because of expectation of reciprocity in social relationships. If it is the latter, then fair play is based on self-interest and may be fragile and dependent upon expectations of continuing relationships. This type of research on the effect of earned rights on behavior toward others is fundamental to property rights and contracting in the creation of markets.